Fifth National Conference on Earthquake Engineering (5NCEE)

9223453 Tubbesing This award provides partial support for the Fifth National Conference on Earthquake Engineering (5NCEE), which is part of a series of national conferences on earthquake engineering. The 5NCEE, which will be held in Chicago in July, 1994, will provide a valuable service to the National Earthquake Hazards Reduction Program by offering guidance on future research needs in earthquake engineering and related fields. The conference will also provide a context for researchers and practitioners in relevant technical disciplines to come together to exchange experiences and ideas. The conference proceedings should be a valuable source of information to help facilitate future advances in the field of earthquake engineering. ***